Development of an Open Science/Mathematics Computer Laboratory

This project is improving the chemistry, physics, physical science, and mathematics curriculum at Central Alabama Community College through the development of an Open Science/Mathematics Computer Laboratory. The Open Laboratory expands the use of computers in mathematics and science classes and laboratories using an integrated four level instructional approach. The four levels of instruction include: (1) computer simulation, (2) data analysis and graphing,(3) data acquisition, and (4) construction of a computer interface device. This stepped approach is allowing students to become familiar with one level of computer use before proceeding to the next, more difficult level of instruction. Interactive video discs/software and conventional software, previously used as lecture demonstrations, are being used by individual students to enhance their laboratory experiences. Students are seeing how computer skills important in one subject area can be applied to and overlap with other disciplines. Russell Corporation, a local manufacturer, is matching the NSF grant in support of the project.